RIA: Centrifuge Study of Dense Nonaqueous Phase Liquid Transport

9409950 Pantazidou The objective of this research is to investigate the migration potential of dense non aqueous phase liquid (DNAPLs) in the subsurface by using centrifuge modeling. The conditions under which the centrifuge simulates satisfactorily the governing processes in multiphase flow transport will be established first by critically reviewing and reconciling scaling laws developed by employing dimensional analysis and the method of modeling models. The appropriateness of the scaling laws will be tested against the results of a series of centrifuge model experiments, consisting of NADPLs percolating in saturated sand, silt, and clay. The NADPL migration will be monitored with visual methods, supplemented by electric conductivity or receptivity measurements. ***